Instrumentation for Instruction and Research in Psychophysiology

This project updates the curriculum in psychology involving computer applications linked to scientific equipment. It serves instructional and research needs of the psychology department. The new equipment replaces outdated and non-operational existing equipment. It enables classroom instruction and student research in psychophysiology, with the new four channel recorder of psychophysiological data. Undergraduate education is further enhanced by incorporating the application of computer technology with modern psychophysiological recording techniques. The award will be matched by an equal sum from the grantee.